Mathematical Sciences: Producing and Distributing Careers That Count

This project will assist the Association for Women in Mathematics (AWM) in the dissemination of the career information booklet, Careers That Count. This project helps to address the national agenda in mathematics and science education by providing information about career opportunities in the mathematical sciences.